Oceanographic Instrumentation

9619234 Whitledge This award to University of Texas at Austin will provide new salinometer and fluorometer instrumentation for use on the R/V Longhorn, a 102-foot research vessel operated as part of the University National Oceanographic Laboratory System (UNOLS). The shared-use instrumentation supported here will assist researchers to conduct studies of the physical oceanography and marine biology in the Gulf of Mexico in 1997 and in future years. ***